Three Topics in Combinatorics with Relations to Theoretical Computer Science

We intend to study three topics in combinatorics which are related to
theoretical computer science. We will study the diameter problem for
graphs of polytopes aiming at a polynomial upper bound, and also try to
find versions of the simplex algorithm with sub-exponential worst case
behavior. We will study Boolean functions, their Fourier transform and how
it relates to questions in probability and complexity. We will also try to
find general methods to relate the solution of a positive integer
programming problem and its linear programming relaxation.

Combinatorics have now become the central mathematical discipline in
theoretical computer science (and various applied areas of computer
science as well). The role of combinatorics in computer science today is
quite similar to the role of logic in the early days of computation.
Problems from theoretical computer science enriched and enforced
combinatorial thinking and areas which were regarded as having clear
intellectual merit have gained surprising real-life applications. Linear
programming and the simplex algorithm are among the most important
applications of computers and in our earlier work as well as the planned
research. We intend to study fundamental questions concerning linear
programming. Another area of our research, the Fourier analysis of Boolean
functions is a relatively new area which we helped to develop in the past.
In view of the importance of Fourier analysis in other areas we should not
have been surprised to see its recent applications in combinatorics and
complexity theory and we intend to explore further connections.